Performance of Masonry and Masonry Veneer Buildings in the 1989 Loma Prieta Earthquake

This is a post Loma Prieta earthquake (Oct. 1989) investigation project in learning from this damaging event. The thrust of this project is to study the earthquake effect on masonry and masonry veneer buildings based on analysis and damage observations. The overall objective of this project is to improve the seismic safety of masonry and masonry veneer buildings in the United States. Its specific objective is to evaluate the seismic performance of masonry and masonry veneer buildings in the October 1989 Loma Prieta earthquake, with particular attention to the behavior of selected buildings. The following task will be undertaken: l) review the overall behavior of masonry and masonry veneer buildings; 2) select a small number (3-5) of such buildings for further study, based on their usefulness as prototypes, and on the availability of strong-motion records, 3) study their damages in detail, and compare their responses with that predicted analytically; and 4) using this comparison, assess the effectiveness of existing masonry design codes, estimate the probable hazard of existing masonry buildings, and provide useful information to those concerned with the repair and retrofit of masonry buildings. This study will lead to an improved understanding of the seismic damage to masonry and masonry veneer buildings and the development of practical ways to mitigate such future damage to such existing buildings in seismic hazard areas.